Fluctuations and Structure at Liquid-Liquid Interfaces

w:\awards\awards96\num.doc 9700975 Schlossman Technical: This is a new project in which synchrotron x-ray surface scattering will be used to investigate fluctuations and structure at the liquid-liquid interface in multi-component fluids. These experiments will probe the role of molecular ordering and thermal fluctuations in determining interfacial phenomena . The areas of interest are as follows. (1) Study of interfacial profiles at the oil-microemulsion and microemulsion-water interfaces as the degree of internal order in the bulk phases is varied. (2) Study of the behavior of fluctuating interfaces interacting over short distances in thin wetting films. (3) Study of the behavior of the binary alkane-water interface over a wide range of chain lengths and for temperatures near the melting temperature of the bulk alkane. (4) Study of surfactant organization at the liquid- liquid interface in a well defined chemical system as the amplitude of interfacial fluctuations is varied over one to two orders of magnitude. %%% Non-technical The existence of a surface tension is evident by poking a pin into the surface of water. This tension is determined by the free energy required to take molecules from the bulk of the liquid and create a unit area of surface or interface. This energy depends upon the molecular organization at the interface. Many processes that depend upon the interfacial structure occur at liquid-liquid interfaces, such as the transport of molecules across the interface. These processes are important for making new materials, understanding interfacial chemistry, and in biological interfaces such as membranes. Unfortunately, very little experimental information about this interfacial structure is available. We propose to use powerful synchrotron x-ray sources to study this structure at liquid-liquid interfaces. These st udies will include measurements on oil-water interfaces commonly encountered in daily life (and in industrial manufacturing) and also on some exotic interfaces that fluctuate wildly on their own. *** p:\toulouse\abs98